Texture and Form Perception in the Cat

This proposal by Dr. Blake had a previous award from Northwestern University. The P,I. transferred to Vanderbilt University after completing the first year of his award. The time lapse between the end of the first year and the beginning of the second year necessitated treating the remaining two years as a new award to Vanderbilt for a Standard Award.